III: Small: Information Systems Under Schema Evolution: Analyzing Change Histories and Management Tools

The significant progress made by database research on
schema mapping (e.g., omposition, invertibility), data exchange,
and query rewriting, can provide breakthrough solutions for the Database
Schema Evolution problem. But as of today, information systems are
sorely lacking the methods and tools needed to cope with the
problem, and to reduce the cost of data migration, rework of queries,
application rewriting, and downtime created by schema changes.
In fact, this old problem has been made worse by the success of
scientific databases (e.g., Ensembl) and web information
systems (e.g., Wikipedia)---where the fast evolution of applications
and requirements characterizing the web and the scientific discovery
process is exacerbated by the number and diversity of users and
organizations cooperating on these endeavors.. Fortunately, the openness of
these public-domain information systems (vs. corporate ones), and the
abundance of their interesting evolution histories make it possible to
built a comprehensive testbed to determine the strengths, limitations,
and potentials of candidate methods and tools proposed for the problem.

Thus, this project is building: (i) an open-source curated repository
containing evolution histories from key information systems,
(ii) benchmarks for a comprehensive set of tools tested therein,
and (iii) instruments to collect and analyze evolution histories.
These are then used to (a) compare and evaluate existing approaches,
methods and tools, and (b) entice researchers to evaluate and improve
their techniques and add their test cases to the benchmark.
A transformative impact can be expected upon schema mapping
research and applications, inasmuch as theoretical solutions
are now validated and improved on real-life case-studies.
These in turn are expected to transform and improve significantly
scientific databases and web information systems. For further
information see the project web page:
http://www.cs.ucla.edu/~zaniolo/nsf0917333.html